Mathematical Sciences: Estimation in Multivariate Analysis and Related Topics

The research involves the estimation of the covariance matrix of a multivariate normal distribution and using the basic approach to treat some related problems. The estimators of the covariance matrix are formal Bayes and orthogonally invariant, so the focus is on estimating the eigenvalues subject to the natural order. The formal marginal densities that determine the estimators will be developed. In addition the methods may be applied to the problem of estimating the mean vector when the components satisfy order relations. These estimators will be compared with the classical isotonic regression. Furthermore a problem in quadratic discrimination will be examined which originates from an application in ophthalmology.